Ice Flow and Microclimate Survey at Existing Core Sites at Agassiz Ice Cap, Ellesmere Island: Benefits for Paleoclimate

This study will address an important question that must be answered before reliable climatic records are deduced from core in glaciers. An observed two degree (Centigrade) termperature difference at ten meters depth in coreholes less than two kilometers apart near the divide of Agassiz ice cap on Ellesmere Island, Northwest Territories, Canada, show that climatic intepretations are vulnerable to microclimatic effects, at least near these coreholes. The two degree difference is important because it is 20% of the total probable temperature change between the late Wiconsinan glacial maximum and the present at that location. The study consists of two parts: (1) a strain and temperature survey at that surface that will provide input data for a finite element model that will be eventually be used to determine how ice dynamics determines the paleoclimatic record down the coreholes, and (2) a microclimate investigation to learn the precise mechanisms that cause the two degree temperature difference. Wind pumping--that is, frictional dissipation caused by forcing of air through the porous firn by surface turbulence-- is tentatively proposed as the cause of warmer ten meter temperatures at the ice divide.